Development of a 'Real 3-D' GPR System for Geoscientific Imaging

0323213
Grasmueck

This grant supports development of a new generation 3-D ground penetrating radar (GPR) system that will employ laser scanning technology for cm-level positioning of multiple GPR antennae and wireless links to replace industry standard GPR cables. The developed system should allow for rapid acquisition of high resolution 3-D GPR images of the shallow subsurface underlying natural terrains, regardless of topography. The project will involve interdisciplinary collaborations between geoscientists and electrical engineers at the Universities of Miami and Notre Dame and in the commercial sector. The project will also involve graduate students and the prototype system will be tested in applications ranging from studies of hydrologic conditions of the vadose zone to surveys of the distribution of buried unexploded ordnance on military bases.
***